"The Making of an Engineer" -- An Engineering Experience Course for High School Students

9452824 Rosa The University of Denver seeks to intimate a 3-week, summer residential and commuter Young Scholars project in engineering for 58 students entering grades 10, 11 and 12. This national program is particularly interested in the recruitment of women, African Americans, Hispanics, and American Indians students. The program includes instructional and research activities in all engineering disciplines but emphasizes electrical and mechanical engineering. Students are provided opportunities to discuss engineering careers and professional ethics; visit with engineers in industry, private practice, university research and government; use the computer as engineering tool; and do individual and team engineering analysis and design.